A Workstation Environment for Computer Science

This project enhances the upper level computer science offerings at this institution by providing students with high-efficiency work stations and specialized programming tools. The laboratory that supports this project includes networked SUN workstations and such software as Franz Extended Common Lisp, Smalltalk, MProlog, Ada and expert systems tools. Using this laboratory, students are exposed to some pratical programming projects that would not be possible using conventional microcomputers. This award is being matched by an equal sum from the grantee.